Geometric Group Theory

9803396
Mosher
A central theme of geometric group theory is that finitely generated
groups can be studied geometrically by attempting to classify them up to
quasi-isometry. In one part of this project, the investigator, working
jointly with B. Farb of the University of Chicago, will attempt to show
that if G is a finitely generated group that is quasi-isometric to a
solvable group, then G is very closely related to some solvable group by
simple algebraic operations, with special attention to fundamental groups
of 3-dimensional solv-manifolds and other polycyclic groups. In another
part, joint with M. Sageev, the investigator will work on constructing
new examples of word hyperbolic groups that have high codimension but are
not closely related to arithmetic lattices, a problem posed by M. Gromov.
Continuing a long-term effort, the investigator will study the following
weak version of W. Thurston's Hyperbolization Conjecture, namely that if
M is a compact 3-manifold, then the fundamental group of M is either word
hyperbolic or else contains a subgroup isomorphic to a free abelian
group of rank 2. This part will make use of tools developed in previous
joint work with U. Oertel as well as new tools of ``coarse algebraic
topology'' developed recently by geometric group theorists. Continuing
another long-term effort, the investigator will work on showing that if M
is a compact hyperbolic 3-manifold, then only finitely many different
pseudo-Anosov flows are needed to compute Thurston's norm on the second
homology of M.
Groups are the mathematical abstraction of symmetries of geometric
objects. Symmetry patterns of wallpaper, bathroom tiles, and the
tilings on the walls of the Alhambra in Spain give examples of Euclidean
symmetry groups. Many of Escher's paintings give examples either of
Euclidean or of hyperbolic symmetry groups. This project will cover
several topics in geometric group theory, the general study of geometries
and their symmetry groups. By matching the large scale properties of a
geometry with the large scale properties of its symmetry groups, one can
use geometries to study groups and vice versa, a very fruitful pairing
that has led to many recent mathematical advances. The investigator,
working with Benson Farb (U Chicago), will study a special class of
groups known as ``solvable groups,'' a generalization of Euclidean
symmetry groups. Working with his colleague Michah Sageev, he will
investigate new generalizations of hyperbolic symmetry groups. He will
also continue work on long term efforts to understand 3-dimensional
geometries and their symmetry groups, as well as to study 3-dimensional
dynamical systems.
***